Development and Application of the SF6 Method for Sulfur Isotope Geochemistry

This award provides support for developing a new technique for sulfur isotopic analysis in natural samples of geochemical interest. The technique employs sulfur hexafluoride for measuring mass 33, 34 and 36 sulfur simultaneously. It will be developed in the laboratories of the Carnegie Institution of Washington's Geophysical Laboratory by the Principal Investigator. The developmental work will include the construction of an appropriate vacuum extraction system and reaction vessels for the fluorination of very small samples of natural sulfide materials with bromine pentafluoride. The value of this technique is in the search for non mass-dependent isotope fractionation effects in meteorites and in terrestrial physical-chemical processes.